Demonstration of a Method of Creating a Very High ResolutionAutostereoscopic Flat Panel Display

Research and development of a technology that will allow the manufacture of very high resolution autostereoscopic (3D) displays for advanced computer applications is proposed. This innovative technology will provide the scientific community a true 3D alternative to current 3D and 2D imaging systems. A method that allows the display of images with a resolution greater than the pixel count of the LCD itself has been devised. Use of this method may allow the production of autostereoscopic displays with an image quality matching that of high-end CRTs. Initial applications in advanced scientific computing include molecular modeling and MRI.